Second Workshop on Bridge Engineering Research in Progress, to be held in Reno-Lake Tahoe, September, 1990

This project will conduct a working on current bridges engineering research being performed throughout the country. THe objective of the workshop is to inform all researchers and practitioners of the projects in progress so they may know what is happening which may be of use to them. It will reduce duplication and assist in the transfer of knowledge among all parties concerned with bridge engineering.